CISE Research Instrumentation: Infrastructure for an Information-based Manufacturing Testbed: A Joint Initative of Carnegie Mellon and Drexel University

9729827 Khosla, Pradeep K. Paredis, Christian Carnegie Mellon University CISE Research Instrumenation: Infrastructure for an Information-Based Manufacturing Testbed: A Joint Initiative of Carnegie Mellon and Drexel University This proposal initiates an education and research effort on information-based manufacturing. This collaborative effort between Carnegie Mellon and Drexel Universities, along with numerous industrial partners, will create a multi-university Information-based Manufacturing Testbed consisting of pilot projects in the areas of - Assembly Process Planning, - Subcontractor Selection; and - Engineering Design Repositories. The CMU-Drexel Testbed will be used by researchers, students, and industry participants to conduct exploratory research toward the reduction and elimination of information bottlenecks in the manufacturing enterprise. The fundamental research thrusts of the Testbed will include (1) to define and test computing and network architectures to support information-based design and manufacturing services; (2) to deploy prototype services for assembly, process selection, design-for-manufacture, and artifact fabrication; and (3) to create novel methods for search, retrieval and tracking of engineering data as it is acted upon by teams of people and software agents. The final results will be open to the public---creating an online forum for providing many with a means to become familiar with the latest information technology for engineering.